Iceland Database Project

This project will create a database of Iceland demography during most of the eighteenth and nineteenth centuries. The PIs will add to an existing database of birth and marriage records, enlarging it by adding death, confirmation and household composition records. The database will be created on a microcomputer in a management system that would permit its use on advanced microcomputers and mainframe equipment, and it will be made available at cost to scholars. The completed database will be a valuable tool for reconstructions of historic Icelandic society and a resource affording all scholars a unique opportunity to deal with an entire nation. Previous reconstructions of life histories, households, and families have relied on samples of parish registers, necessarily tending to lose the more mobile members of the population, a drawback this database would circumvent. This research is important because it will provide a unique set of information to demographic researchers, to help refine theories of family and household growth and change.